Travel: Participant Support for a Workshop on Sustainable Precision Agriculture in the Era of IoT and Artificial Intelligence

Agriculture faces increasing challenges all around the world in the face of climate-change related issues. A new focus on climate smart agriculture catalyzed by developments in machine learning and artificial intelligence will be needed to better manage complex agricultural cyber-physical systems to maintain productivity to ensure food security while constraining the impact that agriculture has on greenhouse gas emissions.

This proposal is to provide support for U.S. participation in a workshop on Internet of things (IoT)/artificial intelligence(AI)/machine learning (ML)-enabled precision agriculture to be hosted by Ben-Gurion University at Beer-Sheva in July 2023. The focus will be on big data acquisition and AI/ML-based analytics in precision agriculture. It will cover a wide range of topics focused on scoping of the key challenges remaining in how to use IoT/AI/ML to support further development of sustainable agriculture.